Collaborative Research: Spectral Graph Theory and Its Applications

Spectral Graph Theory or Algebraic Graph Theory, as it is also known,
is the study of the relationship between the eigenvalues and
eigenvectors of graphs and their combinatorial properties. Random
walks on graphs, expander graphs, clustering, and several other
combinatorial aspects of graphs are intimately connected to their
spectral properties. Recent approaches to the analysis of
high-dimensional data have exploited the fundamental eigenvectors of
the data. These data sets are large and ever increasing requiring
``real-time" accurate responses to the given queries. This creates the
need for very fast algorithms, that also provide strict theoretical
guarantees on their output. Spectral techniques have been applied to image
processing, both by computers and in the primary visual cortex of
monkeys. Critical component to all these application is algorithms
with efficiency and accuracy guarantees for solving these linear system
and finding their fundamental eigenvectors.

A multidisciplinary team consisting of Theoretical Computer
Scientists, Machine Learning Scientist, and Neuroscientist will
develop and apply spectral graph theory to applications from data
mining to clustering, and image processing. Enabling technology
develop will include: 1) linear-work or O(m log m)-work algorithms
that run in poly-logarithmic parallel time for computing extreme
eigenvalues and generalized eigenvalues of diagonally-dominant
matrices, including Laplacian matrices, as well as algorithms of
similar complexity for solving the related linear systems. 2) Better
estimates for Fiedler values and generalized Fiedler values.
Application development: 1) Improvements in spectral image
segmentation. 2) The use of generalized eigenvalues in data mining and
image segmentation to combine multiple sources of information. 3) The
use of preconditioners for approximate inference in graphical models.
and 4) Combine insights into the problem of image segmentation gained
from spectral algorithms with knowledge gained from recent experiments in visual system
of monkeys to better understand how the primary visual cortex functions.